Canyon Through Time: Reverse Archaeology in the Grand Gulch Region

9453055 Casjens The Utah Museum of Natural History at the University of Utah will use this planning grant to plan an exhibit called "Canyon Through Time; Reverse Archaeology in the Grand Gulch Region." They will use the knowledge and viewpoint of the several living cultures concerned in telling this story looking at the past, the present, and the future. Breaking from the tradition of presenting only the archaeologist's "voice" in an exhibit, they will have different "voices." Their goal is to give both the local Native Americans and scientists the opportunity to tell the story as they see it. The planning grant will give them the opportunity to bring together individuals representing this diversity of viewpoint to establish the script of the exhibit. The project has the potential for serving as a model for others developing exhibits and projects on archaeological and anthropological themes where it is valuable to bring together this diversity of perspectives.